Differential Selection of Host Trees by Dependent Species: A Field Test of Diversifying Selection in Ponderosa Pine

This research concerns the interactions between ponderosa pine (Pinus ponderosa subsp. scopulorum) and four species that feed upon it. These include the Abert squirrel (Sciurus aberti), the porcupine (Erethizon dorsatum), the dwarf mistletoe (Arceuthobium vaginatum) and the bark beetle (Dendroctonus ponderosae). Researchers will compare trees that are fed upon by one (or two) of these species to trees that are left alone. The comparisons involve biochemical and morphological features of phloem and xylem, growth and reproduction, and genetic constitution of damaged and undamaged trees. The primary purpose of the research is to test the hypothesis that each of the four species selects different ponderosa pine individuals. Results will provide a test of the idea that herbivores and parasites can create diversifying selection within plant populations. The project will act as a pilot study to allow the investigators to analyze existing data and perform trials to gather preliminary, `proof-of-concept' data. This information will facilitate the development of a full-scale project using the ponderosa pine system.